Heterogeneous Meta Programming Systems

The project studies typed heterogeneous meta-programming systems where the meta-language and the object-language are different languages, with different type systems. The objective of the project is to design and implement a system with a fixed meta-language, in which it is possible to build different systems with different object-languages, or one system with multiple object-languages.

The project studies how to integrate the multiple type systems that must coexist in a heterogeneous meta programming system. The type system of the meta-language must be extensible, in a manner that makes it possible to incorporate the type systems of arbitrary object languages. The goal is to produce a system where type correct meta-programs produce only type-correct object-programs. Ideas from extensible kinds, higher-order abstract syntax, intensional analysis of code, indexed-types, and the use of constrained type systems will be investigated as mechanisms to accomplish these goals.